DMREF: Analysis and Optimization of Polymer Networks for Emerging Applications

In this project funded by the Designing Materials to Revolutionize and Engineer our Future program of the Chemistry Division, Jeremiah Johnson and Bradley Olsen from Massachusetts Institute of Technology will develop methods for the synthesis and characterization of dynamic polymer networks. The research project involves a closely integrated collaboration between experimental work and computational studies to develop a technique for the quantitative analysis of defects in polymer networks. Novel polymer network materials with dynamic crosslinks and isotopic labeling will be synthesized and their defect contents will be characterized as a function of the synthetic conditions. New theoretical and computational methods will be developed for the analysis of network structure and correlated with the experimental results. The broader impacts of the project involve the potential technological benefits of better understanding the structure of polymer network materials, training graduate and undergraduate students in interdisciplinary science, enhancing research infrastructure through the establishment of strong collaborations between experiment and theory groups, and developing hands-on teaching modules on polymer gels aimed at middle school students.

Hydrogels are networks of long chain molecules that can absorb up to 99% of their weight in water, and they are important materials for a number of consumer products and biomedical technologies. Structural defects in the network are key contributors to limitations on the performance of hydrogel materials. This research project seeks to develop experimental and theoretical strategies for identifying and counting the number of defects in the networks. Such information will permit the preparation of hydrogels with fewer defects and superior properties and could lead to novel materials for biomedical technologies and water purification membranes, amongst many applications.